Presidential Young Investigator Award: Moderate-TemperatureElectrochemistry in Solid Electrolyte Systems

Research on solid electrolyte systems will be conducted. Methods of producing thin-film solid electrolytes and performing gas-phase electrochemistry at moderate temperatures will be investigated.